Research in Low Energy Nuclear Physics

This grant supports operation of the Princeton cyclotron laboratory and the nuclear physics research of the faculty and staff. The group will carry out measurements at the frontiers of nuclear physics, nuclear astrophysics, and will study fundamental symmetries and interactions. Some of the research will be carried out in collaboration with scientists at other facilities - ATLAS at Argonne National Laboratory, the Indiana University Cyclotron Facility, the Sudbury Neutrino Observatory, and the Soviet-American Gallium Experiment. An experiment at Princeton will study the breakdown of time reversal invariance in the B decay of polarized 19Ne. A 3He- 4He dilution refrigerator, operating at temperatures below 0.01 K, will cool bolometric detectors to investigate the possibility of a 17 keV neutrino mass state in the B decay of 63Ni. Research at the Princeton facility by numerous outside users will be carried out using the unique features of the cyclotron laboratory.